Academic Success Project (ASP) for Computer Science, Engineering and Mathematics

The Academic Success Project (ASP) for Engineering, Computer Science and Mathematics combines academic courses with supplemental instruction and guidance, field trips to businesses and universities, lab tutoring and mentoring programs, guest speakers, and access to an intensive summer program for designed to help mathematics, engineering, and science majors stay on-target with their studies, as well as to become familiar with the 4-year college environment.